Summer Science Camp in Mathematics for Rising Seventh Grade Underrepresented Minority Students

The Hampton University sponsors a four-week Summer Science camp annually for the same group of forty-eight rising seventh grade minority students. Program activities include: 1) instruction in geometry, probability, and statistics in experimental mode with emphasis on scientific research methodology, supplemented with problem-solving, problem-solving techniques, the graphic calculator and computer usage; 2) enrichment experiences such as study skills and writing for success in mathematics; alleviation of mathematics anxiety; guest speakers who discuss career options in mathematics and local field trips to business and professional operations. Parents play an active role by providing after school and weekend help for the student on the basis of their own program orientation training. Follow-up activities include minds-on, hands-on activities developed and presented by students using the skills and techniques acquired during the summer program as well as additional classroom-laboratory activities.